Reversible Phosphoglucosylation and the Regulation of Vesicle Release

Exocytosis, a regulatory mechanism of eukaryotic cells, is a cellular process by which internal membrane-bound vesicles fuse with the plasma membrane to release substances into the external medium. It is hypothesized that the process of secretion occurs by exocytosis. The objective of this Research Planning Grant for Women Scientists and Engineers, is to test the hypothesis by taking a physiological approach to study the role of post- translational modification in vesicle release. Dr. Jay will employ electrophysiological techniques, specifically whole cell patch clamping, to measure cell capacitance in two neuronal systems, PC12 cells and synaptosomes. The effects on exocytosis should be accompanied by a change in capacitance. Results from this research will provide additional information on this mechanism of neuronal secretion.